Particle Physics II

This grant will support the participation of this young assistant professor, who will work with another group at the University of Michigan in studying the physics of the particle responsible for the weak interaction - the Z0. The machine called LEP at CERN in Europe which makes Z0's has been running now for almost three years, and the group at Michigan was responsible for building an important component of the spectrometer called L3 which is used in the detection of the Z0 decay products. These decays reveal details of the theoretical "standard model" for the interactions of nature (including the weak interaction) with great precision.